High Angular Resolution Studies of Active Stellar Binaries

Mutel, Robert L. 94-17353 Mutel will conduct a three-year program to use the VLA and VLBA to investigate properties of non-thermal radio emissions from close, late-type binaries which show evidence for enhanced activity. It is a 3-part program: 1) to determine the spatial distribution of radio emission in the outer magnetospheres of several binaries with the VLBA; 2) to determine the frequency dependence of the polarization, spectra and time history of several classes of active binaries using the VLA; and 3) to use the VLA and VLBA observations to test and develop quantitative models for the geometry and dynamics of stellar magnetospheres for close binaries. ***